Conference Information Dissemination on Science for Students with Disabilities

In accordance with its proposal submitted April 18, 2003, Georgia Tech Research Corporation (GTRC) requests $56,829 from the National Science Foundation over a 21-month period for a standard grant in the program's demonstration, enrichment, and information dissemination (DEI) track. These funds will be used primarily to use national conferences to disseminate targeted information to teaching practitioners about methods and resources for teaching students with disabilities.